Arctic-Boreal Transects: Synthesis of Information on the Effects of Climate and Vegetation Diversity on Ecosystem and Global Processes.

ABSTRACT CHAPIN OPP-9523396 A researcher at the University of California will conduct two workshops to examine trace-gas feedbacks to global climates, water/energy feedbacks to climate, and the role of vegetation structure and change in feedbacks to climate. The workshops will address the importance of biodiversity and vegetation structure to large-scale (regional to global) processes. The workshops will serve to integrate the results of several separate high-latitude programs into a comprehensive framework to determine the interactive roles of vegetation and ecosystem processes in the feedback of high-latitude ecosystems to global climate. Separate workshops are planned to summarize the vegetation and water feedbacks to climate. The workshops will constitute the U.S. contribution to the International Geosphere-Biosphere Programme effort to coordinate North American high-latitude research in global change.